Annual Technical Meeting of the Society of Engineering Science to be held at Arizona State University on October 20-23, 1996

9630400 Reed The purpose of this award is to provide partial travel expenses for fifteen students to attend the 33rd Annual Meeting of the Society of Engineering Sciences to be held at Arizona State on October 20-23, 1996. This meeting brings together scientists and engineers to discuss a wide variety of topics in the broader fields of engineering science and mechanics, materials and manufacturing. ***